Development of Improved Gravitational-Wave Transducers

The sensitivity of the present resonant-mass gravitational-wave detector is limited by the relatively low electrical quality factor and the restricted bandwidth of the transducers. In order to reach the potential sensitivity of third-generation, ultralow-temperature gravitational-wave detectors, significant improvement must be made in the transducers. Prof. Paik will construct, test, and deliver new transducers to work with the most sensitive bar detectors at Stanford and Louisiana State Universities. This collaboration will enable those receivers to reach new levels of sensitivity within the next three years.